The Dynamics and Topographic Interaction of Deep Flows: Synoptic Velocity and Nutrient Profiling at the Blake - Bahamas Outer Ridge

A field experiment designed study the Deep Western Boundary Current (DWBC) near the Blake-Bahamas Ridge with an Absolute Velocity Profiler (AVP) will take place in July 1992. The main objectives of this work are to determine the characteristics and volume transport of the DWBC and how that current interacts with topography. Supporting measurements of dissolved oxygen, turbulent kinetic energy dissipation rates and nutrients will be conducted